Metallacrowns: A New Class of Metallamacrocycles

This award in the Inorganic, Bioinorganic and Organometallic Chemistry program supports research by Professor Vincent L. Pecoraro at the University of Michigan on the synthesis of metallomacrocyclic complexes, which utilize metal ions as part of a cyclic structure surrounding a central metal ion. Goals include the preparation of chiral metallacrown complexes, selective recognition of chiral guest molecules by metallacrown complexes and the modular synthesis of chiral solids.

Chiral or asymmetric molecules occur naturally in biology and are also important in new drug synthesis where molecules of different chiralities must be quantatively prepared. This research focuses on creating molecular recognition agents that may be employed in new methods for the separation of chiral molecules.